FRG: Collaborative Research: Multi-Dimensional Problems for the Euler Equations of Compressible Fluid Flow and Related Problems in Hyperbolic Conservation Laws

ABSTRACT

FRG: Multi-Dimensional Problems for the Euler Equations
of Compressible Fluid Flow and Related Problems
in Hyperbolic Conservation Laws

Historically, fluid and solid mechanics study the motion of
incompressible and compressible materials, with or without internal
dissipation. For gases and solids with internal dissipation as a
secondary effect, the gross wave dynamics is governed by inviscid,
thermal diffusionless, dynamics. Within these categories, compressible
motion for solids corresponds to the study of elastic waves and their
propagation; compressible motion for fluids is usually associated with
inviscid gas dynamics. Furthermore both compressible solids and
fluids exhibit shock waves and hence we must search for discontinous
solutions to the underlying equations of motion.
Incompressible motion on the other hand concerns
itself with the motion of denser fluids where the idealization of
incompressibility is useful, e.g. water or oil, as well as the motion of
certain solids like rubber. While there are still many important
mathematical issues to be resolved for incompressible fluids, for example,
the well-posedness of the Navier-Stokes equations in three space
dimensions, the mathematical study of compressible
solids (as represented by the equations of nonlinear elastodynamics) and
fluids (as represented by the Euler equations of inviscid flows)
in two and three space dimensions is even less developed.
This provides the motivation to the proposers to collaborate in a
three year effort to advance the mathematical understanding of the
multi-dimensional equations of inviscid compressible fluid dynamics
and related problems in elastodynamics.
The core of our plan is to arrange a sustained interaction between and
around the members of the group, who will
(1) collaborate scientifically, focusing on the advancement of the
analysis of multi-dimensional compressible flows by developing new
theoretical techniques and by using and designing effective, robust and
reliable numerical methods;
(2) work together over the next several years to create the environment
and manpower necessary for the research on multi-dimensional compressible
Euler equations and related problems to flourish; and in the meantime,
(3) share the responsibility of training graduate students and
postdoctoral fellows.

The project is devoted to a mathematical study of the Euler equations
governing the motion of an inviscid compressible fluid and related
problems. Compressible fluids occur all around us in nature, e.g. gases
and plasmas, whose study is crucial to understanding aerodyanmics,
atmospheric sciences, thermodynamics, etc.
While the one-dimensional fluid flows are rather well understood, the
general theory for multi-dimensional flows is comparatively mathematically
underdeveloped. The proposers will collaborate in a three
year effort to advance the mathematical understanding of the
multi-dimensional equations of inviscid compressible fluid dynamics.
Success in this project will advance knowledge of this fundamental area of
mathematics and mechanics and will introduce a new generation of
researchers to the outstanding problems in the field.